Support of the U.S. STEP Coordination Office

The present proposal is for the continuing and partial support of the U.S. STEP Coordination Office (USSCO). This office was established late in 1990 and has as its fundamental objective to assist the U.S. science community in meeting STEP science objectives. The U.S. components of STEP include the facilities and projects of NSF, NOAA, NASA, and USAF. These components consist of spacecraft, ground-based, rocket, balloon, and theory and simulation programs capable, in the collective sense, of studying the complete set of coupling mechanisms that are responsible for the transfer of energy and mass from one region of the solar-terrestrial system to another: GEM, CEDAR, ISTP/GGS, UARS, CRRES, ISY, MAX91, GOES (and associated data available on SELVAX), and suborbital programs. The USSCO interacts with these and other domestic programs and with those responsible for accomplishing the detailed international science objectives of STEP for the purposes of: coordinating joint compaigns for data acquisition and data analysis which meet national and international science objectives; collecting and disseminating STEP-related information; and, organizing professional society meetings and special sessions. The activities of the USSCO are significant in that they enhance and expedite the scientific process within the STEP context by identifying and implementing opportunities for synergistic endeavor.